Adaptive Digital Signal Processing for Spatial and Temporal Sampled Coherent Imaging Systems

This research will develop advanced digital signal processing algorithms for specific
coherent imaging systems where complex signals are spatially and temporally sampled,
and subsequently processed by computers.Modeling of the physics of data acquisition
will play a crucial role throughout the signal processing chain,from preprocessing at the
sensor level to adaptive processing/beamforming and final image formation.The focal
research areas will involve ultra wide band medical ultrasound imaging,and
electromagnetic wave imaging in millimeter spectral bands.Millimeter electromagnetic
wave imaging could have important anti-terrorism applications such as detection of
plastic guns and knives in human body scanning at airports,and surveillance of suspected
safe houses,storage areas,and cargos by imaging through walls or crates.
In the medical ultrasound area,the research will involve the following specific topics:(1)
optimal transmit/receive beam forming for near field dynamic focusing;(2)multiple foci
B scan imaging for increasing scan rates;(3).theoretical performance bounds associated
with combined random processes of random scatterers and noise.and (4),phase
aberration correction algorithms for 3-D systems including new methods for dealing with
dispersed aberrators such as fat lobules,membranes,etc.,that can diffract and refract the
ultrasound beams.The research in electromagnetic coherent imaging will involve:
synergistic adaptation of the statistical ultrasound autofocusing/phase aberration
correction concepts to the electromagnetic spectrum;development of millimeter wa e
imaging algorithms for surveillance functions such as rapid body scanning and imaging
through thin dry medium such as wood,plaster board or stone.The research in all the
coherent modalities will involve:development of practical fast converging computer
implementations of reconstruction algorithms;extensive simulations,and performance
analyses of the new models and algorithms.